Travel Grant: MIDWEST MACHINE LEARNING SYMPOSIUM 2024

The PIs propose a travel grant program to provide support for graduate students from US universities to attend the Midwest Machine Learning symposium (MMLS) 2024 on May 20-21, 2024 . The objective of this grant is to provide travel support for graduate students enrolled in US universities to present posters and participate in the conference. The PIs, representing the conference organizing committee, are requesting to support the travels of up to 20 graduate students for roundtrip airfare and to provide for student lodging up to 150 students for two nights (first come first serve) at the Univ. of Minnesota. The travel grants will be awarded competitively to graduate students from US universities. The awardees will be selected by a committee chosen by the organizing committee and the poster quality will be considered in the selection process. The awards will be administered by University Minnesota, with no overhead to be charged.